Imaging Synaptic Connectivity with Wide-Field Digital Microscopy

9550467 Zhang We propose to further conduct our research in the area of high performance parallel/distributed and computing. We will concentrate on three important problem areas: 1) investigating performance and computation problems in parallel and distributed architecture and system design; 2) developing parallel numerical methods and software for solving large real-world problems; and 3) building software tool and environment for parallel and distributed computing and performance evaluation. Our underlying goal of this research is to understand the comparative advantages and disadvantages of various types of multiprocessing hardware and software environments, and to discover new methods that efficiently solve different types of application problems on parallel and attract more minority graduate students to participate in high- performance computing research supported by our established and growing expertise in the proposed research areas. The proposed projects are major research activities in the newly established High-Performance Computing and Software Laboratory at the University of Texas at San Antonio, which has been funded by NSF, the U.S. Air Force and industries. ***